Isolation of Chemical Waste Sites Through a Block Displace- ment Technique Utilizing Slurry Injection Processes

this is a demonstration project of the block displacement technique. The objective is to prove that this is an appropriate method for constructing a bottom barrier in chemical waste-disposal sites that can isolate the wastes and control seepage. The technique injects low permeability material in a slurry state into notched injection wells, propagating horizontally-oriented separations and lifting the block of overlaying ground in the process. Phase II will undertake a full scale field demonstration where the application of chemical grouts, as an alternate to bentonite, will be tested.